Geodetic Investigations of Earthquake Slip Patterns and Interseismic Strain Accumulation

This research is to study earthquake fault behavior and regional deformation by means of newly developed theoretical techniques. These methods invert geodetic elevation changes, triangulation measurements, VLBI baseline data and tide gauge observations to recover the location and intensity of slip on shallow earthquake faults. The goal is to develop quantitative pictures of coseismic, postseismic and interseismic strain accumulation and release. This research is a component of the National Earthquake Hazard Reduction Program.